Research in Intermediate Energy Physics

This project addresses certain fundamental aspects of the electroweak
and strong interactions that are reflected in meson and nucleon
properties and interactions at low/intermediate energies. The
research is motivated by the fact that the present comprehensive
theory--the Standard Model (SM)--is known to be incomplete;
furthermore, the SM becomes unworkable for strong interactions at low
energies.

The rare beta decay of the pi-meson (pion), occurring once in about
100 million ordinary pion decays, provides a theoretically clean
window to certain allowed extensions of the SM. The PIBETA
experiment, mounted at the Paul Scherrer Institute, Switzerland, by an
international collaboration of seven institutions led by the
University of Virginia (UVa) group, aims to improve the present 4%
accuracy of the pion beta decay rate by about a factor of ten in a
staged approach, in order to match the theoretical uncertainty and
provide new constraints on physics beyond the SM. Measurements that
began in 1999 will continue through 2001. PIBETA is the main effort
of the present research project. Additional commitments of effort
include work on studies of nucleon and meson structure at Stanford
(SLAC) and Jefferson Lab (CLAS collaboration).

During the past three years this program has resulted in two doctoral
degrees at UVa plus three more at collaborating universities stemming
from the PIBETA project alone. Four more UVa Ph.D. degrees are
expected in the next three to four years. Each year typically one to
two undergraduate students are engaged in research on this project,
thus gaining practical laboratory experience.